High Resolution Imaging and Spectroscopy of Star Formation Regions

This award supports research concerning young stellar objects and especially their circumstellar disks. What are the disks' masses, shapes, rotation curves, and particle sizes? The research includes infrared speckle imaging of regions of ongoing star and planet formation, imaging at millimeter wavelengths, continuation of infrared spectroscopic observations of molecular and atomic hydrogen lines, and some theoretical interpretation. Young stars form out of shrinking clouds of gas and dust. Much gas and dust remains behind, possibly forming a planetary system. Beckwith has developed the techniques for state-of-the-art accurate mapping of the gas and dust disks surrounding young stars. He has already mapped the disk surrounding the star HL Tauri which may resemble our solar system at the time of its formation. He will use even more refined techniques to observe the circumstellar materials of other stars in both infrared and radio wavelengths.